Recovery and Science Coordination of an Ice Core at Siple Dome, Antarctica

This award is for support for the recovery of a 1000-meter ice core from Siple Dome, Antarctica and the coordination of a science management office for the scientific program. The proposed project is part of the West Antarctic Ice Sheet (WAIS) program, which seeks to understand the current behavior of the West Antarctic ice sheet and to decipher its past climate history. Siple Dome is located between ice streams C and D and is well-situated to investigate coastal climate conditions and the dynamics of the Siple Coast ice streams which drain the West Antarctic ice sheet. The annual accumulation at the site is 7 to 11 cm of ice per year and it is anticipated that annual layers will be identifiable to an age of at least 6,000 years before present. The length of the usable climate record will extend to at least 80,000 years before present. This proposal provides the background for the Siple Dome drilling program and develops the opportunity for individual scientists (who have submitted separate proposals) to work on the ice core . This proposal would establish a Science Coordination Office that would coordinate the activities of the various organizations involved in the project, including the National Science Foundation (NSF), the Polar Ice Coring Office (PICO), Antarctic Support Associates (ASA), and the National Ice Core Laboratory (NICL).